An Undergraduate Laboratory Course in Experimental Psychology

The scope and quality of undergraduate research in experimental psychology is being expanded and upgraded. The new equipment is allowing laboratory experimentation in four areas: psychomotor performance; biofeedback; operant conditioning; and perception and cognition. As a liberal arts university for deaf students one focus of laboratory experimentation and research in the undergraduate experimental psychology course is on the sensory, motor, cognitive and physiological concomitants of deafness. Under the plan students are learning the basic principles of experimental design, data analysis, and preparation of reports by conducting experiments which are both interesting and instructive, utilizing modern and advanced instrumentation. Psychomotor equipment, biofeedback equipment, and operant conditioning equipment have been added as well as a constant illumination projection tachistoscope. In addition to strengthening the undergraduate course in experimental psychology, the equipment is contributing to improvements in other experimentally-oriented courses, such as perception, learning, motivation and independent study (supervised student research).